IUCRC Site at UCF in Multiphase Transport Phenomena

Center research will focus on the further development, evaluation, and deployment of next generation multiphase models for turbulent and non-turbulent flows as well as computational methods for rapid design and analysis of process and equipment for a wide range of applications encountered in, but not limited to, the automotive, chemical, and petrochemical industries. Funds will be used to promote long-term synergistic partnerships among industrial members and academic research groups at the two universities. Specific problem-oriented research projects will be identified in collaboration with industrial members of the Center.